Collaborative Research: CSR-PDOS: Managing OS Extensibilty via Aspect-oriented Programming Technology

Developers often extend large, C-based software systems, including
operating systems, databases, and web servers, in an ad-hoc manner to
meet their performance and functionality requirements. Many of the
extensions represent crosscutting concerns in that they do not fit
within a single program module and are scattered throughout the
source. Maintaining and applying such extensions with commonly used
tools, notably diff and patch, is time consuming and error prone.
Furthermore, it is challenging to ensure correctness when composing
multiple extensions. This work makes crosscutting concerns part of
the architecture of C-based systems by leveraging aspect-oriented
software development techniques. Specifically, extensions are
captured as aspects, which provide a language-supported methodology
for expressing crosscutting concerns. The work also builds a new set
of tools that extract, inject, and translate system extensions
represented as aspects. Moreover, the work develops static program
analysis technology that aids in the semantic separation of extension
from mainline code and safe composition of extensions. To validate
the tools' effectiveness, the PIs conduct case studies on the Linux
kernel and open source extensions such as the Nooks system that
provides device driver isolation and recovery. For the educational
community, the work offers an attractive approach to hands-on learning
about real-world systems. For the system software community, the work
offers the ability to more rapidly and seamlessly move from idea to
design to implementation for new system-level extensions. Finally,
for the broader community of commercial developers and their
customers, the work offers a path to more flexible reuse of system
software.